Southern California Geometric Analysis Seminar

DMS-0104592
Zhiqin Lu, Bennet Chow and Peter Li

This award provides partial support for active research
mathematicians with limited means of support to attend and
participate in the Southern California Geometric Analysis
Seminar to be held in the winter quarter of 2002, 2003, and
2004. The seminar will be held at the University of
California, Irvine in 2002, the University of California,
San-Diego in 2003, and the University of California, Irvine
in 2004. The potential speakers will be M. Gromov
(IHES/Courant), K. Grove (Maryland), T. Mrowka (MIT), P.
Sarnak (Princeton), E. Witten (Princeton) and S.T. Yau
(Harvard) for the winter 2002. The Seminar will typically
be held over a weekend with 3 main (one-hour) lectures on
Saturday and another 3 main lectures on Sunday. The
schedule will be arranged so that there will be ample time
for the participants to interact with the speakers and other
participants. A social event will also be arranged for
Saturday evening to promote further interaction.

Please refer to the Seminar's website for updated and
detailed information: http://math.uci.edu/~scgas/2002.html